National Youth Science Camp

The National Youth Science Camp Foundation offers a three-week summer enrichment program for 2 outstanding high school graduates from each state who have interest in science careers. The goal of the program is to honor outstanding academic achievement, foster leadership development and encourage pursuit of science careers. Activities include lectures and seminars by noted scientists and community leaders, site visits to government and industry science facilities and a variety of recreational programs. This year lectures will be videotaped for distribution to schools across the state. The State which established the program in 1963 has provided the major funding to date. However authorization of this year's budget has been delayed and the program will be cancelled if alternative funding is not identified by the June 29 start date. This program offers a unique opportunity for talented students and is similar in purpose to the Graduate Fellowship Programs.